Mathematical Sciences: The Study of Holomorphic Mapping Theory and Diophantine Approximations

The research entails the value distributional geometry of complex curves in complex hyperbolic spaces. Ramifications include a geometric study of several associated number theoretic questions (Diophantine Approximation). The research also includes an approach to several problems concerning the Gauss maps of minimal surfaces in space forms.